Geochemical Differences Between the Mantle Beneath Northern Versus Southern Costa Rica

This Science in Developing Countries award supports collaboration between James Gill of the University of California at Santa Cruz and Eduardo Malavassi of the Universidad Nacional in Costa Rica. The project aims to test the investigators' hypothesis that a recently discovered geodynamic discontinuity in central Costa Rica has a fundamental influence on the chemical composition of magmas there. Circum-Pacific magmatism causes most of the earth's volcanic hazards and is the chief mechanism for maintaining and reprocessing the earth's crust. The magma's origins are poorly understood. The Nicaragua-Costa Rica sector of the Central American volcanic arc constitutes an important natural laboratory for studying the nature of and reasons for spatial and temporal variations in the composition of young volcanic rocks. This project will lead to insights into the magma-forming process at arcs, a vital topic in volcanology. The researchers will collect and prepare recent volcanic rocks in Costa Rica and perform labwork in the United States. The Costa Rican research has expertise in the collection, selection, and preparation of samples specific to Costa Rica. The U.S. researcher, a world expert in arc volcanoes, will provide SRF and mass spectrometry isotope analysis, capabilities which Costa Rica lacks.